Development of a New Scanning Probe Microscopy Capability for Simultaneous Mapping of Elastic and Adhesive Property in Materials

9905394
Matikas
A new quantitative microscopy technique for simultaneous mapping of both the nano-scale elastic properties and the van der Walls forces on the surface of a material will be developed under an SGER award. No such technique is currently available. The technique is based on scanning probe microscopy combined with ultrasonic excitation of the probe tip. This will allow quantitative information to be extracted from the image. At present nano-scale elasticity mapping is based on using the tapping mode of a scanning probe microscope. This method is purely qualitative and is limited to compliant materials only. The current state-of-the-art microscopy for imaging van der Walls forces requires a dielectric immersion medium. This will not be necessary under the new technique.

The specimen under examination will be excited using an ultrasonic signal with frequency higher than several MHz. At this frequency range the tip will not be able to follow the surface displacement caused by the elastic stress wave because of the inertia of the cantilever. A signal modulation technique will be developed to enable acquisition of images and force measurements at these high frequencies at the point where the tip and the sample are just losing contact.
***